Continuing Support of the Duke University Centr for the Study of Primate Biology and History

This award provides continued support for the Duke University Primate Center (DUPC). DUPC houses the largest and most diverse collection of prosimian primates in he world. The DUPC operates as a research resource providing animals, tissues and blood samples to scientists in diverse areas of research including animal behavior, anatomy, morphology, physiology, ecology, developmental biology, taxonomy, evolution, biodiversity, and conservation biology. In the last few years, research on prosimians has increased in scope, intensity and sophistication. The DUPC serves an important function for the research community by maintaining a colony of diverse prosimian primates and providing the research material as well as facilities. Duke University has committed considerable resources for the DUPC, and NSF provides funds necessary for the DUPC to function as a community resource for national and international researchers.